SM: Conference on Symmetry in Mathematics and Physics

Abstract

Award: DMS-0753874
Principal Investigator: Donald Babbitt, Srinivasa R. Varadhan

The main theme of the conference will be important recent results
and outstanding problems in the fields of representation theory
of finite and infinite dimensional Lie and super-Lie groups, and
its applications to quantum computing, geometry, physics, and
differential equations, the different areas being unified under
the over-arching theme of symmetry manifested in geometric
actions of groups and their representations. The speakers will be
internationally recognized researchers in these fields and the
audience is expected to be a mixture of senior researchers in
these fields together with advanced graduate students, postdocs
and junior faculty who aspire to make or already are making
important contributions to these fields. There will be travel
funds made available to select participants of the latter group
with a special emphasis on women and underrepresented
minorities. It should be pointed out that four of the twelve
speakers are women. The background to the conference consists of
the work on supersymmetry pioneered by the physicists such as
Zumino, and Ferrara (both speakers at the conference), and the
work of the mathematicians Kac, Moody, and others who brought
focus to infinite dimensional Lie algebras and their applications
to quantum field theory. In the 1990's the group theoretic point
of view was applied successfully to the theory of meromorphic
differential equations and their moduli. Very recently important
new progress has been made by the development of a supersymmetric
Mackey theory and its applications to super particle
classification, by work on differential Galois group theory of
difference equations, and by the work on the foundations of
super-geometry.

Symmetry is one of the most fundamental and useful notions in
both mathematics and theoretical physics. For example it explains
the mysteries of the periodic table of chemical elements such as
why hydrogen and oxygen combine to make water. An example of
symmetry is the following; consider an ordinary square made with
wire, rotate it 90 degrees about its center and notice it comes
back onto itself although the molecules of the wire have
moved. Do it again, you still get the same square. When you do it
the fourth time, i.e., you rotate it 360 degrees the molecules of
the wire come back to where they started. In mathematical
language this says that “the cyclic group of order 4” is
the symmetry group of the square. It is a wonder that the notion
of symmetry and group can be extended and enriched to explain
complicated sub-atomic physical phenomena as well as solve
fundamental problems in mathematics coming from areas such as
cryptography. The symmetries to be considered in this conference
are part of this same story. Of perhaps particular interest is
the theoretical notion of supersymmetry used in the study of
sub-particle physics. The founder of this notion, B. Zumino, will
speak at this conference. It is presently a theoretical
hypothesis that many believe to be true but which awaits
experimental verification. It is one of the main goals at the
European Center for Nuclear Research (CERN) in Geneva to use its
multi-billion dollar Hadron Collider which comes on line in 2008
to experimentally establish the supersymmetry hypothesis. For
more information see the conference Website,
www.math.ucla.edu/symmetry. This award is funded jointly by the
programs in Geometric Analysis, Probability, and Algebra, Number
Theory, and Combinatorics.